Sixth National Power Systems Conference, Bombay, India, June 4-7, 1990, Group Travel Award in U.S. and Indian Currencies

Description: This project supports participation by eight U.S. scientists and engineers in the Six National Power Systems Symposium to be held in Bombay, India, June 4-7, 1990. The Symposium is organized by the Indian Institute of Technology, Bombay, and jointly sponsored by the Maharashta State Electricity Board and the Indira Gandhi Institute of Development Research as well as the Central Power Research Institute in Bangalore. The conference theme is Power Systems for the year 2000. It is expected to be widely attended by scientists, engineers, consultants and manufacturing representatives from India, and by academicians and scientists from around the world. Major topics to be covered include large power systems, control systems, and decentralized systems. The conference will be cocurrent with a tutorial symposium to be given by invited experts from the U.S and other countries. Scope: India is embarking on a large expansion of its power network, with an increase from 60 Million kilowatt (KW) capacity to about 200 million KW within the next 25 years. For India, as well as for most developing countries the focus in this growth is expected to be on energy conservation, environmental consideration as well as reliability. Sources for fuel, both renewable and nonrenewable, have to be considered. The proposed conference provides a forum for discussions and exchange of information on the important issues related to the planning, design, construction, operation and maintenance of electric power systems. It is likely that the conference will identify specific scientific problems that may be of particular importance to India, and other LDC's, as well as to the U.S.